Planning: Idaho EPSCoR RII Track-1 Planning Grant

This planning proposal, submitted by Regents of the University of Idaho is directed to support the coordination and planning for identification of existing research infrastructure, additional future capacity and infrastructure needs, a cogent logic model, and a robust collaboration plan that are necessary to formulate a meritorious RII Track-1 project on energy water security and resilience. The approved research topic is directly aligned with three of Idaho’s high impact research areas from the Science and Technology Plan: Energy Systems, Natural Resource Utilization and Conservation, Systems Engineering and Cybersecurity.This request for a planning grant is expected to lead to a meritorious project that enhances and develops transformative science in energy-water security and resilience. The team has planned a series of meetings and/or workshops in order to address the different activities involved in the planning of the Track-1 proposal.